Research in High Energy Physics

This grant will support a search for the transformation, or oscillation, of muon-neutrinos into electron-neutrinos. Such a transformation could occur if neutrinos have non-zero mass, as has been claimed by a Russian group studying nuclear beta-decay. The claim would require profound changes in accepted theories, and thus deserves careful study through independent experiments of the type funded by this grant. The grantees have completed a series of measurements for this purpose at the Brookhaven Alternating Gradient Synchrotron (AGS) accelerator, and will now evaluate these data for evidence of neutrino oscillations. The grant also will support preliminary studies intended to define a system for precise energy-calibration of the bismuth germinate detectors to be used in the L3 European Organization for Nuclear Research (CERN) experiment. In particular, the possibility of using nucluer reactions, induced by a beam from an ancillary Radio Frequency Quadruple (RFQ) accelerator will be investigated and evaluated. The importance of this study is augmented by the anticipated need for similar devices for experiments with the proposed Superconducting Super Collider (SSC) accelerator.